Research and Education in Advanced Computing (REACOM)

HRD- 0401679

Research and Education in Advanced Computing

Clark Atlanta University

PI: Sharouz Aliabadi

With NSF support, Clark Atlanta University will strengthening its science, technology, engineering and mathematics educational and research infrastructure by (1) conducting research in the areas of computational mechanics, computational fluid mechanics, and data mining; (2) establishing an advanced computing laboratory; (3) revising the computer and information science and engineering curricula; and, (4) providing student research opportunities and training in advanced computing.

The research component has significant intellectual merit. One of the research projects involves the development of computational algorithms based on space-time discretization using the discontinuous Galerkin finite element method for problems with moving boundaries and interfaces arising in computational mechanics. A second research project will computationally study the fluid flow and heat transfer in micro-channel cooling systems using nanofluids that show anomalously enhanced thermal conductivities. The objectives of a third research project are to develop evolutionary techniques for learning knowledge bases from large data sets in the geospatial domain.

Broader impacts of the project include advancing fundamental knowledge in
computational science and engineering and database management; strengthening institutional research capacity; strengthening the infrastructure in computer and information science and engineering through the establishment of an advanced computing laboratory and curricula enhancements and revisions of courses; and increasing the pool of students who will pursue graduate studies in science, technology, engineering, and mathematics disciplines.